Mapping Concurrent-Software Specifications to Petri Nets for Analysis & Metric Definition

One of the most significant problems in concurrent-software analysis research is achieving a balance between general theoretical concepts and specific practical techniques. The focus of this research is on applying and adapting petri net theory for solutions to pragmatic problems in concurrent-software analysis. We will investigate algorithmic mapping of various concurrent-software specifications to appropriate types of Petri net models and we will seek effective analysis procedures that work by combining concepts from general net theory with domain specific information. Both qualitative properties, like deadlock, and quantitative properties, like complexity, will be studied.